Collaboration of Indian and American Research Scholars in the Natural and Social Sciences, Award in US and Indian Currencies

Description: This project provides funds to the Asian Cultural Council (ACC) to support research of scholars selected under the Indo-U.S. Subcommission on Education and Culture. Eight awardees will come from a wide range of scientific fields and will work with counterparts who are known scientists in India. Funds from this grant are used for travel, and research costs of the scholars, and to partially pay for the stipends of the awardees. U.S. $15,000 will be used to cover administrative costs in the U.S. The ACC nominees for 1988-1989 are in various social science fields as well as chemistry, chemical engineering, mathematics and physiology. The specific topics they propose to work on are generally of considerable interest to NSF. Scope: The ACC, the agent for the Indo-U.S. Subcommission on Education and Culture, is a highly regarded organization funding opportunities for collaboration with Indian scholars in scientific areas of interest to NSF and to India. It secures necessary clearances for the awardees in India and provides logistical and administrative support. NSF makes the final ranking of potential awardees from the ACC nominees. Past awardees have been productive with considerable publications in refereed journals. The project is to be funded over two years. FY 88 U.S. $15,000 plus $219,268 in Indian currency FY 89 U.S. $15,000 plus $219,268 in Indian currency